Basic Research on Amphibian Immunosuppression

Funds are sought for establishment of methods for basic laboratory research on the function of immune systems and the relation of corticosteroid secretion, to immune function in amphibians. This research will become the cornerstone of a larger project focussed on both field and laboratory studies on the factors which cause immunosuppression in amphibians. These studies, in turn, will be used to assess, as completely as possible, the causes of declines and extinctions in amphibian populations.